Near-Critical Reacting Systems

Dilute solutions near the critical point of the solvent behave in unpredictable ways. Such near-critical systems will be used as novel reaction environments. Under these conditions, the solvent can either envelop and cluster the solute molecules or repel them. The reactions can be inhibited by operating in this regime.